PRF/M: Training and Syntheses Related to the NASA Fife Information System

Dr. Melvin I. Dyer, of the University of Georgia, will spend his 15-month Mid-Career Fellowship in Environmental Biology tenure at Kansas State University, applying NASA's geographical information system known as FIFE (or First ISLSCP Field Experiment) and its related satellite- and aircraft-based remote sensing imagery to study ecological phenomena induced by mammalian grazing at the Konza Prairie Research Natural Area, a Long-Term Ecological Research site. The goal of the work is to identify grazer influences on local ecosystem processes, and then to "scale-up" these influences to whole-site descriptions and even larger regional landscape scales. Such work is of high priority for achieving understanding of the determinants and effects of regional and global change problems. Research will include an aspect of training which entails a month-long residency at the University of Munich, Germany.